Travel: NSF Student Travel Grant for 2026 IEEE Symposium on Security and Privacy (IEEE S&P 2026)

IEEE Symposium on Security and Privacy (IEEE S&P) is recognized as a premier platform for showcasing advancements in computer security and electronic privacy across a wide range of related topics and disciplines. Participation in premier venues is critical to the success of student researchers and the workforce development for cybersecurity and national security. This project supports student travel to IEEE S&P and enable students to showcase their research, receive invaluable feedback, attend high-quality talks, and interact with top researchers across the field of security and privacy. This travel grant provides students both intellectual and professional resources to advance the quality of their ongoing work and careers as security and privacy researchers. The project's broader significance and importance include professional development for students as well as continued growth of the symposium.